Mathematical Sciences: Geodesic Flows On Manifolds With No Conjugate Points and Related Topics

Burn's work displays an impressive variety of techniques and questions which stem from meaningful physical applications. He has some fine publications alone and in collaboration with some very able colleagues. Due to their efforts the structural properties of Riemannian manifolds of the negative curvature sort are remakably well understood and they are probing into the nature of physically meaningful phenomena such as entropy. The two main objectives of the current project are to extend recent results for manifolds with non-positive curvature to manifolds with no conjugate points, and to further investigate manifolds with non-positive curvature. Compact manifolds with non-positive curvature are classified by their rank. The geodesic flow is ergodic if and only if the manifold has rank 1, and higher rank examples are quotients of products of rank 1 examples and symmetric spaces. The main problem for manifolds with non- positive curvature is to further understand the examples with rank 1. For manifolds with no conjugate points, it is still unknown whether the analogue of rank 1 will imply ergodicity of the geodesic flow, even in dimension 2.